VLSI/ULSI Parameter Computations

Zemanian This research is on three dimensional modeling methods for predicting performance and characteristics of VLSI-ULSI circuits and devices. The research topics are: 1. three dimensional corner corrections for capacitance calculations; 2. inductance computations and transmission line parameters; and 3. dominant paths in interconnect networks including path ranking. These computations are needed for assessment of delay times in off-chip interconnection lines and for modeling pulse propagation through MOSFET circuits. The approach is to use infinite electrical network theory to simplify the computation of coupling between interconnection lines and adjacent devices. This theory leads to efficient numerical methods, including domain contraction techniques, which yield more powerful computation algorithms.